RAPID: Collaborative Research: Deepwater Horizon: Simulating the three dimensional dispersal of aging oil with a Lagrangian approach

Intellectual Merit: Simulation of the subsurface and surface dispersal of oil in the Gulf of Mexico will be conducted with the objective of producing probabilistic envelopes of the spread of different size classes of oil as they age over time. The proposed model system is ready to respond. The SABGOM hydrodynamic model of the Gulf of Mexico and South Atlantic Bight has been successfully coupled with LTRANS, a fully three-dimensional Lagrangian particle tracking model capable of simulating sub-grid scale turbulent motion as well as time-varying particle attributes like diameter, density, and rise/sinking velocities. At distances greater than a few hundred meters above the deepwater source (depending on ambient current speed and stratification), the dispersal of oil depends mainly on the behavior of oil droplets which are fractionated into different sizes. These oil droplets can have orders of magnitude differences in ascent rates (e.g., 6 mm/s and 0.06 mm/s for 300 micron and 30 micron diameter particles, respectively) and change in diameter as they age. Emulsification, interaction with suspended particulate matter, dissolution and other processes can also affect droplet behavior. Our Lagrangian approach is ideally suited for simulating oil dispersal because differences in initial droplet characteristics and time-varying droplet behavior are readily incorporated. In this project, the coupled SABGOM/LTRANS model system will be run for the time period of the Deepwater Horizon oil spill, maps and animations of model output will be produce. The model results will be compared with available observations and will be made available to the oil spill response community.

In the near-term, a series of LTRANS simulations will be run using the existing flow field from recent SABGOM model simulations. The Lagrangian dispersion runs will be initialized with a continuous source of particles representing the near-field plume above the well. Each run will simulate the far-field dispersion of those particles based on a specific set of assumptions about particle behavior. As more complete information on the size and composition of gas bubbles and oil droplets emerge, the most realistic particle distributions from the LTRANS ensemble of runs will be selected. As part of this effort, an improved hindcast from the SABGOM model for use with LTRANS will be prodiced and the model skill will be quantified against physical oceanographic observations. In addition, Eulerian and Lagrangian predictions of oil dispersal will be quantitatively compared with observations in order to use the strengths of both approaches to provide the most realistic predictions for the oil response community.

Broader Impacts: Mid-term results will be open-source models and model results using existing and likely new, particle-tracking technology for the geosciences and oil-spill response communities. Incorporation of the model into the framework of the Community Surface Dynamics Modeling System (CSDMS) will ensure that the coding structures are suitable for coupling with other models and future distribution for research and educational purposes. In addition, the team members from the USGS will ensure that LTRANS can run with CF-compliant model output, making it functional with over seventeen coastal models, allowing simulations and forecasts to be made throughout the US coastal waters. In addition to providing timely information for oil spill responders, this project will lay the ground work for future efforts that investigate the interaction between oil and larval transport of commercially and ecologically important organisms in the Gulf of Mexico.